The Xinotech Formal Specification of the Object Abstractor for Automatic Program Transformation

9361575 Rivera This project is to research and develop a knowledge-based, metalanguage-based object abstractor for the automatic transformation of Ada programs. This Object Abstractor (XOA) will recognize relationships in existing, non-object-oriented (OO) Ada, COBOL and C program, and will transform these programs into a higher-level object-oriented Ada 9X, C++, or COBOL 95 architecture with reusable components. The automatic abstraction and transformation of existing sources, which for COBOL are valued at $2.3 trillion, may be the only opportunity to modernize and rescue these sources from obsolescence. This system will be applicable to other languages at little extra cost. ***